Roadside Science: Informal Science Education for the Eastern Sierra Nevada Byways

This project proposes a new approach for delivering informal science education to the traveling public through scenic highway programs. This pilot project would engage travelers as they drive along the 220-mile Eastern Sierra Scenic Byway between California and Nevada, a corridor that traverses an unspoiled landscape rich in natural resources and unique contributions to scientific research. The project plans to use the new Advanced Traveler Information System (ATIS) to broadcast informal science education "stories" via transmitters along the highway. Students in afterschool programs will develop the content of the microcasts and related hands on activities. These microcasts would then direct travelers to roadside pull-offs, visitor centers and museums to engage in hands-on science activities that are led by local, trained docents. The planning grant will be used to create, implement and evaluate a pilot test site at an established roadside pull-out that will include signage, radio broadcasts, docent-led activities and participant surveys.